Continued Growth of the Antarctic Multibeam Bathymetry Data Synthesis as a Resource for Antarctic Geoscience Research and Education

This award supports continued development of the Antarctic Multibeam Bathymetry and geophysical data Synthesis (AMBS). The AMBS is a web-accessible database for the Southern Ocean and Antarctica, whose primary focus is compilation of multibeam bathymetry data collected by the US Antarctic Program's research ship, the R/V Palmer. The data are useful to a variety of Antarctic research activities and represent an important legacy of exploration. The database presently contains 80% of the Palmer's data. A map browser, GeoMapApp, has also been developed to visually explore the dataset, generate custom maps, and download user-defined digital elevation models as well as multibeam ping files. This award supports acquisition of new content including multibeam, seismic, radar and gravity data; deployment of a portable version of GeoMapApp for use on the Palmer while at sea; and enhanced connectivity with complementary data and metadata efforts, such as the Antarctic Master Directory and databases for deep-sea sediment cores.